Mathematical Foundation and Numerical Simulation for Foamy Oil Flow in Porous Media

A technical description of the project:
Heavy (dense and viscous) oils are considered an alternative energy source
because they constitute one of the largest reserves of
previously unexploited fossil fuels on earth.
The fraction of the original oils in
place that can be recovered by solution gas drive
decreases with increasing oil viscosity. For
heavy oil reservoirs, the expected recovery factor
(percentage of the oil in the reservoir that can be
recovered) by solution gas drive is typically lower than 5%.
However, a number of heavy oil reservoirs under
solution gas drive show anomalous primary
performance: low production gas-oil ratios,
high oil production rates, and high oil recovery.
Ultimate oil recovery can be as high as 20%
in the primary performance of such heavy oil reservoirs.
The oil samples at the wellhead produced from these
reservoirs are in the form of oil-continuous foam,
which has the appearance of chocolate mousse
and contains a certain volume fraction of gas.
The term "foamy oil" is often used to
describe such oils. The flow behavior of
foamy oils is very complex, and remains controversial
and poorly understood. This project is directed toward
experimental, theoretical, and numerical investigations
of the flow behavior of foamy oils.

A nontechnical description of the project:
The world needs enormous new crude oil reserves.
During the next several decades,
there is not and there will not be an economical,
abundant substitute for crude oil in the economies of industrial
countries, even with the price of a barrel of oil over $70.
Maintaining the supply needed to support these economies
and enable them to grow means that
significant additional crude reserves must be developed. The
conventional (light and medium) oil resources discovered up to
the end of 2002 will last at most 40 years
at 2002's production rate. Thus additional development will
be primarily in the form of the sole alternative: heavy crudes.
Two crucial issues must be addressed before
or during the design of any production project for these
heavy oils: What is a suitable method for
evaluating the foamy oil drive mechanism that plays a major role
during such oil recovery, and what is a reasonable percentage of
ultimate oil recovery for each project? Unfortunately,
these two issues have not been fully addressed and are still
not understood. The laboratory experiments, theoretical investigations,
and numerical simulations proposed in this project
will greatly improve our understanding of these issues.